Laboratory Studies of Spontaneous Reconnection and Intermittent Plasma Objects

The research involves an experimental exploration of magnetic reconnection in the
VTF (Versatile Toroidal Facility) facility at MIT. This facility provides a unique
opportunity to experimentally unfold the physics of collisionless reconnection.
Newly developed diagnostics are now providing detailed information on the
onset of reconnection. The award will fund a postdoctoral researcher who will
explore the physics of the inner reconnection region. The spontaneous nature
of reconnection in VTF renders the proposed research uniquely relevant to
reconnection in astrophysical, geospace, and fusion relevant laboratory environments.